Engineering Research Equipment Grant: Workstation System for Structural Research

The research equipment is for a workstation system for modeling of structural systems using large-scale simulation softwares. The principal investigators are active in the areas of finite element analysis, expert system development, and the nonlinear modeling of structures and components under impact loading conditions. Significant ongoing contributions are in the area of the accurate prediction of the response of structures and components used in the building, automotive, aerospace, shipbuilding, and manufacturing industries. A very important emphasis is on the accurate prediction of the fatigue life of structures and components in the presence of flaws. Another emphasis is on the development of accurate simulation schemes for the optimal design of such structures for efficient performance and cost reduction. The system is capable of large-scale computations at a fast pace, allows access to the LISP environment, possesses excellent graphics capabilities, exhibits the advantages of desktop stand-alone systems, allows easy networking with more powerful computers and upgrading with changing needs, uses the latest technology, and handles development work efficiently.